REU: Undergraduate Research in Combinatorial Computing

This project will bring ten undergraduates to Hunter College of CUNY in the summer of 1993 for a four week period, to be followed up with a once weekly academic year experience to continue the work. All students will be from groups underrepresented in computer science and engineering research. Research topics will focus on finite algebra and finite geometry, specifically finite projective affine and subaffine planes and the existence and properties of functions which are either Sheffer or Sheffer with constants. Additionally, speakers will be brought in to discuss social and ethical issues involving legal intellectual property, large distribute systems, and large hardware and software systems.